Experimental Models for Hydrodynamic Transport of Conodonts (Chordata) in Shallow Marine Environments

Conodonts have been utilized, especially during the last 50 years, as principal biologic indices of geologic age. Paleoecologic interpretations of observed distributions have been attributed largely to life habits of conodont animals, and only general mention has been made of the potential for post-mortem disruption of death assemblages. The effects of post-mortem transport processes on distributions of conodont elements in shallow-marine carbonate environments will be investigated by means of laboratory settling and flume experiments. Because of the highly variable sizes and shapes of these phosphatic grains, significant differences exist in terminal settling velocity in a static fluid and are suggested for (1) critical conditions (mean flow velocity) for initiation of movement, (2) transport within migrating small bedforms, (3) differential sorting of elements along a transport path, and (4) amount of breakage during fluid transport. These hydrodynamic differences are extremely important because they would have strongly influenced the distribution of discrete conodont elements, particularly in moderate to high energy regimes. Quantification of these factors can then be used to constrain the paleoecologic interpretation of preserved assemblages of conodonts in peritidal carbonate rocks. This will permit a quantitative approach to determining the amount of post-mortem transport experienced by conodont elements prior to their burial and will also allow for direct statistical comparison of the composition of different samples, when taphonomic effects are factored. Quantification of post-mortem transport broadly enhances the interpretation of biostratigraphic and paleoenvironmental data of conodonts, with implications for the study of other skeletal allochems, by providing models for the interpretation of physical environmental processes that played a major role in the formation of fossiliferous deposits.